MOREnet Expansion Phase 2

This award adds five higher education institutions to the MOREnet state network. Four of the institutions are primarily undergraduate colleges, and one is a junior college. The new institutions connect to a hub located at the University of Missouri at Columbia. Faculty and students at the institutions will benefit from access to the resources of the Internet, including libraries and supercomputer. In addition, they will be able to communicate and collaborate with colleagues at other campuses in pursuit of research and educational projects.